Chemical Remanent Magnetization: A Study of Natural & Synthetic Iron Oxides

Despite its importance to paleomagnetism, the properties of magnetic remanence carried by authigenic minerals is perhaps the least understood of the various processes of magnetization. Theoretical consideration of this so-called "chemical remanent magnetization" or CRM makes several testable predictions. Many of the predictions have not been adequately tested with well controlled experimental data; hence the theory has not changed substantially since its first formulation. A series of experiments, primarily using hematite, address the following specific problems: 1) what controls the direction of CRM?; 2) what is the relationship of CRM intensity to the applied field?; 3) what control, if any, does the applied magnetic field have on crystal growth?; 4) what influence does variability of composition and defect structure have on the remanent and bulk characteristics of our synthesis products?; and 5) can experimental analogues be reconciled with observed behavior of natural samples? This is an ideal ROW Career Advancement Award which will help a very promising young PI to carry out this important body of research and further develop an excellent laboratory.